Grass-Roots Science in America

9311219 Goldstein The tradition of the "amateur" scientist has played a major role in the history of science in the United States. Famous "amateurs" included founding fathers such as Benjamin Franklin (who presented a major theory of electricity) and Thomas Jefferson. These traditions continue to the present day though most of contemporary science is now done by "professionals." Dr. Goldstein is examining the history of "rank and file" scientists and their characteristic institutions, the state and local academies of science. He argues that the trend toward professionalization of the sciences which other historians have documented as part of the coming of age of science in America was complemented by the expansion of non- professional science at the local level. "Grass-roots" naturalists engaged in research that was important to professional scientists but which was shaped by local or regional concerns that were independent of and occasionally conflicted with the goals of the scientific elite. Nevertheless, Dr. Goldstein has found that the relations between "professional" and "amateur" scientists were characterized by cooperation and interdependence rather than the hostility that some historians have postulated. Dr. Goldstein's research is organized around the membership and activities of local academies of science. He analyzes grass-roots naturalists in terms of their significance in the rapidly changing scientific community and also in the context of local society and culture. He explains how these local scientists responded to changes in the structure and methodologies of the natural sciences- -especially the professionalization of science and the rise of the research universities in the 20th century. Even after the professionalization of science, these local academies continued to survive by meeting local needs, remaining active in natural history research and participating in the emerging conservation movement. The sources for this research inclu de scientific texts, published and manuscript proceedings of academy meetings, several representative samples of various segments of the scientific community, and private correspondence. He is paying particular attention to issues of gender and regionalism in his analysis. ***